RUI: Experimental Nuclear Physics Research

This grant supports the research at the Michigan State University National Superconducting Cyclotron Laboratory of a faculty member from the University of Michigan at Dearborn, a primarily undergraduate institution. The research work involves undergraduate students in investigations of heavy ion reactions and scattering experiments with advanced detector systems. The experiments will elucidate the properties of exotic new nuclear species using radioactive nuclear beams.